Bedforms and Sedimentary Structures Associated with Rip Currents, Hawks Nest, Australia

Long and Medium Term Research: Bedforms and Sedimentary Structures Associated with Rip Currents, Hawks Nest, Australia This award recommendation is made under the Program for Long and Medium-Term Research at Foreign Centers of Excellence. The program is designed to enable young U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. The award will support a 7-month research visit by Dr. D. Sherman, University of Southern California, with Dr. A. D. Short of the Coastal Studies Unit, Department of Geography, University of Sidney, Australia. The research aims to elucidate relationships between surf zone flow fields and bedform dynamics through a series of field experiments. The award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents' allowance, if applicable, and a flat administrative allowance of $250.00 for the U.S. home institution.